RUI: Norfolk State University's Nuclear and Particle Physics Research Participation at Jefferson Lab

This research involves experimental studies on the structure of mesons at
Jefferson Lab. Our goal is a better understanding of the strong
interactions among quarks. The program provides an excellent
opportunity for minority undergraduate students to be involve in nuclear
and particle physics research